Computer Interfacing for Laboratory Data Acquisition and Analysis

The questions being asked by today's scientists are moving them steadily into realms where rapid acquisition of data is commonplace, and where sophisticated and detailed analysis is required to make these data sensible. Exposure to the uses and applications of the tools required to engage in this work is becoming an increasing necessity in the undergraduate preparation of young scientists. The microcomputer with its potential for interfacing to instruments and apparatus is a central tool in this process. It is the aim of this project to provide, for chemistry majors, meaningful instruction in and experience with computer interfacing in laboratory environments. Six computer interfacing units are being purchased to be used in six different laboratory courses distributed over the last three undergraduate years. The project is providing an early introduction to computer interfacing, with units appropriately configured for use by inexperienced students. Uses and applications are building in sophistication as students move into more advanced laboratory situations. Chemistry majors are engaging in multiple experiences with these tools and techniques, and it is estimated that seventy new students per year are being exposed to the techniques. The grantee is matching the award from non-Federal sources.